Accelerating Globally Distributed Team Innovation: Building an Experimental Testbed to Leverage Digital Libraries in the Transformation of Design Engineering Education

Proposal : IIS-0230450
Institution: Stanford University
PI: Larry Leifer

This project, entitled "Accelerating globally Distributed Team Innovation: Building an Experimental Testbed to Leverage Digital Libraries in the Transformation of Design Engineering Education" is a collaborative effort of Stanford University and Strathclyde University, Scotland. The project also informally engages partners at other institutions. The project proposes the development, implementation and use of a testbed to improve the teaching and learning of students participating in global team based design projects. The project aims to fundamentally change the way design engineering is taught by combining the use of digital libraries with virtual design studios. The goal of the project is to enhance student learning opportunities by enabling them to partake in global, team based design engineering projects, in which they directly experience different cultural contexts and access a variety of digital information sources via a range of appropriate technology.